Delay-Sensitive Wireless Communications

This project seeks to develop the fundamentals of physical layer
wireless multi-antenna communications to enhance and significantly impact
the design of current and future-generations of cellular telephony, personal
communication services, and wireless local area networks.

Fundamental limits of delay-sensitive wireless channels for realistic fading
models will be sought along with the development of innovative power- and
spectrum-efficient methods for use over multi-antenna systems. These methods
will extract all the available spatial, temporal, and spectral degrees of
freedom and diversity under practical constraints on cost and complexity
that are relevant for hand-held or laptop communication devices. To this
end, new performance criteria will be formulated based on which the analysis
and optimization of various complexity-constrained communication schemes
will be carried out. The planned research will emphasize tight interactions
among, and the discovery of new methods in, the information and
communication theoretic foundations of fading channels and the associated
coding, modulation and signal processing functions.